Electrochemical Machining of Refractory Materials

This Small Business Innovation Research Phase I project addresses the exploratory development of electrochemical machining (ECM) technology based on the employment of dispersed microparticles in aqueous electrolytes. The methodology utilizes suspended particles of C, WC, Ag, or zeolite Y incorporating Ag, in aqueous solutions containing compatible supporting electrolytes such as NaF, NaCl, NaBr, NaClO3, NaBrO3, NaOH and NaNO3. These electrolyte mixtures will be used in the ECM of selected refractory materials. Materials to be studied during Phase I will include W, Ta, Mo, Nb, WC, Inconel 718 and Hastelloy C. Enhanced ECM performance will result because the suspended particles will function as microelectrodes in the applied electric field, and exhibit microscopic electrical-discharge phenomena. This will result in perturbation of the local ionic and chemical environments in the presence of microparticles which will enhance the ECM process. Thus, the presence of suspended electronically conductive microparticles in the electrolyte is anticipated to mitigate catastrophic sparking, Joule heating, cathode polarization, and anode shape changes due to these effects. Additionally, it is expected that resulting surface tolerances will be on the scale of microparticles. The approach is not expected to require significant modification of hardware used with current aqueous electrolyte based technologies.